Equipment: MRI Track 1: Acquisition of a Confocal Microscope System with High-Speed Resonant Scanning for Multidisciplinary Research at the University of Alabama in Huntsville.

An award is made to the University of Alabama in Huntsville (UAH) to acquire an advanced confocal microscope system, which will enable innovative and multidisciplinary research by a broad group of investigators from UAH and neighboring institutions. The microscope will be integrated into three on-campus classes and serve as a pivotal tool for numerous student research projects, providing experiential learning opportunities with cutting-edge equipment. Faculty and students from two neighboring historically black universities will have access to the microscope, enhancing research and education opportunities while fostering inter-institutional partnerships. UAH is located minutes from Cummings Research Park, the second-largest research park in the United States. The instrument will bolster local industry by promoting collaborations between UAH and biotechnology companies, attracting students to the biotechnology field, and enhancing their training. Additionally, the confocal microscope will be integrated into community outreach initiatives to enhance scientific literacy and encourage interest in science, technology, engineering and math (STEM) disciplines. These initiatives will include annual public workshops on fluorescence microscopy and K-12 educational events.

The high speed, high resolution, and live-cell imaging capabilities of the microscope will enable investigators to address key questions about the molecular processes governing a variety of phenomena, including 1) growth and maintenance of dopaminergic neurons throughout neurodevelopment, 2) formation and changes in biofilm structures, 3) regulation of lipid production, storage, and metabolism in mammalian cells, 4) adaptations of bacteria to environmental stress, 5) modulation of protease enzyme activities by natural products, 6.) regulation of cartilage structure, and 7.) synthesis of artificial lymphoid organs. Findings from these studies will be disseminated through peer-reviewed manuscripts and scientific conferences, with inclusion of undergraduate and graduate student coauthors.